Experimental Particle Physics

This action will provide funds to continue experiments with accelerator facilities at CERN (European Organization for Nuclear Research) in Geneva, Switzerland. Two faculty members and research associates from the University of Michigan will perform experiments in elementary particle physics. The experiment in progress, UA6, is a study of the interactions of antiprotons at rest with protons at an energy of 315 GeV and a comparison of these processes with the same outgoing states from the collisions of protons with protons. The experiment is performed in collaboration with other physicists from CERN, Lausanne University and Rockefellar University. The experiment is located in the tunnel of the synchrotron (SPS) and the target is a molecular cluster-jet of hydrogen which crosses the synchrotron beam. Products from the interactions are detected in two particle detectors above and below the beam pipe. The experiment tests the constituent picture of the structure of strongly interacting particles.